Next Generation Software: Active Debugging Information for Multi-Language, Multi-Platform Debugging

EIA-9974960
Ramsey, Norman
University of Virginia

Next Generation Software: Active Debugging Information for Multi-Language, Multi-Platform Debugging

This project is aimed at developing debuggers that work seamlessly with multiple platforms and multiple languages, and to which one can add support for new platforms and new languages at low cost.

This proposal proposes a radical change from the way current compiler technology supports debugging. In essence the proposal proposes to develop active debuggers. Instead of simply giving some compiler-generated information about the program, allow the debugger to step through the code itself. The proposal has selected a set of operations that the debugger will perform to analyze the code, and such operations can be performed efficiently by invoking the compiler to provide implementation of the critical operations. Given this approach allows the debugger to support applications including multilanguage modules.

Some preliminary demonstration of some of these ideas has been already done by the proposer with encouraging indications, as to the effectiveness and efficiency of the proposed methods.